NSF-BSF: RI: Global Token Awareness in Diffusion-Based Large Language Models by Modeling Joint Token Distributions

Large language models (LLMs) have become an essential tool in daily life, routinely used for tasks ranging from drafting emails to comparing products prior to purchase. Increasingly, LLMs are also used for more complex math and coding tasks. This project will develop novel techniques that allow models to succeed at these complex tasks while addressing inference efficiency concerns. The core innovation lies in enabling LLMs to be more globally aware of their output. Concretely, classic LLMs predict text sequentially, one token at a time, conditioning prediction of the next token exclusively on previously generated output. Importantly, already predicted tokens cannot be dynamically corrected if there is an error. Hence, classic models require external error correction mechanisms or regeneration, which increases computing cost. The project innovations circumvent these post-hoc fixes by allowing the model to resolve inconsistencies during prediction.

To achieve this, the project will study diffusion-based LLMs. Diffusion-based LLMs are gaining attention due to their potential for global token awareness, which is beneficial for complex tasks. However, efficient decoding in discrete diffusion formulations remains a concern. If, for faster inference, a set of tokens is jointly revealed within a single time step, the statistical dependence between these tokens is ignored. This project addresses this limitation by explicitly modeling the joint distribution among tokens. For this, the project studies two techniques: 1) the introduction of a latent variable to anchor sequence intent; 2) the employment of continuous relaxation to transition to a continuous state space. Both techniques enable the model to capture the joint dependencies of concurrently predicted tokens. Notably, both techniques are complementary: the global latent variable provides an anchor, while the continuous relaxation allows for smooth, gradient-based optimization of token distributions. The project envisions that the combination of both techniques will pave the way for a new generation of diffusion-based LLMs capable of considering token dependencies during parallel generation, and hence improvements on complex tasks.